SBIR Phase II: Intelligent Planning and Control Software for EV Charging Infrastructure

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) project is to develop a modeling, simulation and optimization software for fleet electrification projects. Electric vehicles (EVs) are expected to comprise 70% of all new buses and 15% of all commercial trucks by 2030. Electric vehicles are more expensive than diesel buses and need additional investments in charging infrastructure; furthermore, electrification is complex as several factors influence its design, cost and performance. The transition from diesel to electric buses could impose significant loads on the local electrical network, entailing significant upgrades to the electrical infrastructure at the facility and the utility grid. The proposed software will offer the electric vehicle industry a platform to analyze the battery, charging infrastructure, and energy infrastructure.

This Small Business Innovation Research (SBIR) Phase II project addresses the problem of planning and operating electric vehicle fleets, especially medium and heavy-duty fleets. The technology uses stochastic optimization and discrete event simulation to optimize fleet sizes to minimize costs and meet operational requirements. The proposed work will create a model of the joint transportation and energy processes (i.e., the driving and charging processes). The proposed software will enable real-time optimization of system operations.